A Sage/SciPy Developer Workshop: Special Functions and Computational Number Theory Meet Scientific Computing; Austin, TX

This workshop is an instance of SAGE Days (number 11 to be precise), a
periodic gathering where developers of the software package SAGE, a
free and open software that supports research and teaching in algebra,
geometry, number theory, cryptography, and related areas, address
current issues of the software, program for very long hours, either
improving existing code or adding new code, and plan the next steps to
be taken. For example, this workshop includes working on adding to
SAGE the capability to work with modular forms over function
fields. In addition to the above standard features of such a meeting,
this particular workshop includes a strong emphasis in the interaction
betwen algebra and number theory (the area of the bulk of the SAGE
developers and researchers in attendance) and computer science,
supercomputing (from TACC, the Texas supercomputing center) and
applied Mathematics (from ICES, the Institute for Computational
Engineering and Sciences) at the University of Texas at Austin, as
well as researchers working outside academia (from Entought, an Austin
based company).

The main goals of this workshop are: (i) to support the development of
the free and open source software SAGE by gathering some of its
developers as well as researchers that use it in their own research;
(ii) to bring together the SAGE commnunity and various research
groups at the host location, the University of Texas at Austin, that
while might have very different research focus share many common
computational problems and needs. To give just one example, being
able to solve large linear algebra problems accurately and fast is a
fundamental problem that underlies essentially any type of scientific
computation imaginable. The availability of high level software is
nowadays of crucial and increasing importance for research in
Mathematics, both in applied and pure Mathematics. SAGE is an example
of a be very powerful computer package that is at the cutting edge
(in terms of the sophistication of its capabilities as well as its
speed) of existing tools for research in Mathematics and its
applications; particularly, in those areas related to algebra, number
theory, geometry and cryptography. The workshop is planned with the
SAGE development model in mind, distinguished by an emphasis on
openness, community, cooperation, and collaboration.